A Center for the Study of Cellular and Molecular Biology

Meharry Medical College proposes the establishment of a Center for the Study of Cell and Molecular Biology. Researchers at the Center, including four new scientists, will expand the medical school's current work in cellular and molecular biology and will at the same time, initiate work in the characterization of genes that are developmentally regulated. Work will continue on advanced applications of recombinant DNA technology to the neurosciences. The Center will also be used to motivate minority students at all educational levels to consider careers in science and engineering. In addition, the Center will develop strategies to strengthen partnerships with industry and academia. This project meets the major goal of the Minority Research Centers of Excellence (MRCE) program: to increase the minority presence in science and engineering by making substantial resources available to upgrade the research capabilities of strong and productive minority institutions. The project will at the same time enable this institution to use research as a tool to increase the effectiveness of related science and engineering activities for minority groups in its region. In addition, the project will provide opportunities for minority faculty and students at Meharry and nearby institutions to engage in meritorious research that leads to publications in refereed journals.